Computer Simulation of Plasmas at UCLA

Computer simulation is used to gain a fundamental understanding of the physics of plasmas, to explore phenomena which are difficult or impossible to investigate in other ways and to study other potentially useful plasma behavior. Numerical techniques are developed to aid the study of these plasma processes and the results of the simulations applied to understanding real experimental configurations.